CAREER: Creating correlated states in two-dimensional heterostructures via nano-patterned dielectric superlattices

Non-technical Abstract: Many interesting phases of matter emerge when electrons strongly interact with one another. These so-called “correlated states” are challenging to understand due to their complex nature. This CAREER project focuses on a new method to design understand correlated states in ultra-thin two-dimensional (2D) materials by using specialized nano-fabrication techniques to create artificial patterns on a supporting surface. The research team uses novel optical techniques to study the underlying correlated states. The approach advances our fundamental knowledge of correlated states, enabling future technologies in quantum information sciences and energy-efficient electronics. The project integrates research with education to provide specialized training for graduate and undergraduate students in the growing field of quantum science. Educational and outreach activities include lab tours and research exposure for high school and undergraduate students from the surrounding community and development of educational experiments for high school teachers to bring 2D material research into the K-12 classroom.

Technical Abstract: This CAREER project investigates emerging correlated quantum phenomena in two-dimensional (2D) semiconducting transition metal dichalcogenide (TMD) heterostructures through the implementation of dielectric superlattices. Using electron-beam lithography methods to pattern the dielectric substrates, this project addresses current limitations in the field by enabling the design of arbitrary lattice geometries and providing in-situ electrical control over interaction strengths via dual-gated devices. The research team uses a combination of unique optical spectroscopy techniques at low temperatures and the interactions between excitons and the underlying electronic behavior to study the emerging correlated states. The PI seeks to establish a new paradigm for creating designable solid-state quantum simulators and expand to more elusive lattice geometries such as square/rectangular, honeycomb, or Kagome lattices. This project establishes a platform to explore fundamental questions in strongly correlated physics, such as the extended Hubbard model and magnetic order in frustrated lattices. The research from this project provides a foundation for educational activities focused on training the next generation of scientists in quantum materials. Further initiatives include direct mentoring of undergraduate and graduate researchers, and the development of research lab visit days and new educational modules for the surrounding community.